NSF-REU Site for Research in Physics

9322073 Becker The existing REU Site in the Physics Department of San Jose State University will be expanded to include the other active research areas in the SJSU Physics Department. A proposed new and innovative component of this REU Site will include support for students in industry-university collaborations. Four teams will be formed, each consisting of a Physics faculty member, a physicist from an industrial or government laboratory located close to the campus, and an NSF-REU student participant. Although eleven of these projects are still in the area of optics, the remaining two are in condensed matter and computational physics. All these projects complement the Physics Department's officially recognized "Concentration in Lasers and Optics", "Concentration in Condensed Matter", and the "Concentration in Computational Physics". These three areas represent the major scientific focus in the high-tech "Silicon Valley" surrounding our University. These on-going research projects will provide both experimental and theoretical research experience for undergraduates in Physics. Undergraduate students will be placed in thirteen projects which range from experimental diode laser spectroscopy of stable isotopes in carbon dioxide to theoretical studies of electrical and optical properties of quantum well semiconductors, to rare- earth spectroscopy, to temperature-induced refractive index changes in oxide insulators, to neutron activation analysis of optical materials. The proposed program's major goal is to involve undergraduate students, especially minorities, in research who might not otherwise have the opportunity. ***